U.S.-Hungary Research on the Pituitary-Adrenal Axis

The primary objective of this U.S.-Hungary cooperative research project between Dr. Willis Paull of the University of Missouri and Dr. Zsolt Lipositz of the University Medical School, Pecs, Hungary is to study the central regulation of the adrenal function by focussing on certain neurochemical transmitter-specific systems in the forebrain and hypothalamus. These studies will analyse connections between neurons rather than between brain structures and will employ ultrastructural double-labelling techniques developed by the investigators which are likely to become important research methodologies for neuroanatomy in the future. This project in neural science fulfills the program objective of advancing scientific knowledge by enabling experts in the United States and Eastern Europe to combine complementary talents, pool resources, and share research facilities in areas of strong mutual interest and competence. Results should contribute significantly to our understanding of the chemical nature of interacting pre and postsynaptic neuronal elements with subsequent relevance to interpretation of vast amounts of data generated in other fields on the adrenal function.